Workshop on Compound Semiconductor Materials & Devices (WOCSEMMAD) 2013 Date: February 17-20, 2013 Location: Pavillon Hotel, New Orleans, Louisiana

The proposed project seeks financial support to support students, participation in a workshop to be held February 17-20, 2013 at the Pavillon Hotel, New Orleans, Louisiana. The 2013 Workshop on Compound Semiconductor Materials & Devices (WOCSEMMAD) will address research areas in III-V compound semiconductor field. It is one of the few workshop format meetings where the latest results can be debated and discussed in a relatively open format.
WOCSEMMAD has played a key role in identifying new directions for research. It is one of the few workshops where presentations are required to focus only on important new data, and last minute results. Less-than-successful results are also very welcome since they allow the participants to discuss the difficulties encountered and propose new approaches.